Algorithmic Problems in Number Theory

The investigator has discovered that, for extremely large input
sizes, modern factorization algorithms such as the number-field sieve
can be carried out with far less memory per processor than was
previously believed. Consequently, for extremely large values of d,
the number-field sieve can factor 3d-digit numbers at the same cost
that was previously believed to be required for d-digit numbers. The
investigator is studying the practical effectiveness of this
discovery for small input sizes, such as 1024 bits and 1536 bits. The
investigator is also continuing his research into the fundamental
computational tools in commutative rings of Krull dimension 1.

The number-field sieve is the best known attack on many public-key
cryptosystems used to protect the secrecy and authenticity of
Internet communications. Understanding the power of this algorithm is
essential in choosing safe key sizes for the cryptosystems. If, for
example, criminals can factor integers as large as 1024 bits, then
users must choose key sizes larger than 1024 bits.

This award is being cofunded by the Algebra, Number Theory, and
Combinatorics Program and the Numeric, Symbolic, and Geometric
Computation Program.